International Travel Award to New Zealand

This is an international travel grant to support the Principal Investigator's visit to University of Canterbury, New Zealand to conduct joint study on earthquake resistant design and detailing of reinforced concrete structures. The activity will enable an understanding of the differences in the design approaches in the two countries be achieved.